Electrochemical Fluorination Processes of Benzene and its Derivatives

The purpose of this work is to develop an electrochemical process to partially fluorinate aromatics such as benzene, toluene, and chlorobenzene such that the rign structure is kept intact. These fluorinated products have great value as intermediated for pesticides and in other biological applications. Fluorination of organic molecules can be accomplised by many means. The advantages of electrochemical fluorination are that it is not a harsh reaction, it can be arried out a room timperature and ambient pressure, and it utilizes inexpensive raw materials.